Covers of the Sphere and Moduli of Curves

Abstract for proposal # 0200225, Helmut Voelklein:

Hurwitz spaces parametrize covers of the sphere
of given ramification type and monodromy group.
Each Hurwitz space has a natural map to the moduli
space of genus g curves (for suitable g). This
has been used in algebraic geometry for a long time,
but only in the case of simple covers (which in
particular have a symmetric group as monodromy group).
Hurwitz spaces of covers with arbitrary monodromy
group were constructed by Fried and Voelklein,
and applied to the Inverse Galois problem.
Proposed research explores how the group-theoretic
methods associated with Hurwitz spaces can be
applied in the study of the moduli of curves.
This includes algorithmic methods of computational
group theory, which are especially useful in the
study of the braid group action on generating
systems of a finite group. Generalizations replace
the braid group by the mapping class group of a
punctured surface of non-zero genus. Applications
to the Inverse Galois Problem are to be expected.
The project is partially in cooperation
with G. Frey, K. Magaard and S. Shpectorov.

Group Theory is the abstract study of symmetry patterns
(of any object). Many algorithms of Group Theory
are implemented in modern computer algebra systems.
Proposed research uses these computer algebra
systems to find and study families of highly symmetric
algebraic curves. Algebraic curves are basic objects
in mathematics, physics and applications, e.g., cryptography.
Elliptic curve cryptography provides encryption schemes
used for data security on the internet.